Research Initiation Award: Chemical Vapor Deposition for Tribological Applications

The CVD deposition process will be studied with the goal of controlling and limiting the growth of columnar grains and promoting the growth of fine, equiaxed grains with improved tribological properties. The process development will be based on equilibrium and other thermodynamic calculations, followed by experimental deposition studies and tribological testing. Initial work will concentrate on tungsten carbide films.